SSC: Santa Fe Community College Summer Science and Mathematics Camp (SSMC)

Santa Fe Community College, in Gainesville, Florida, in the rural north central part of our state, will provide an intensive four week Summer Science and Mathematics Camp (SSMC) and follow-up activities during the academic year for 60 seventh grade African- American students from the School Board of Alachua County School District. Students are expected to continue through ninth grade. the goal of SSMC is to provide academic enrichment and career exploration experiences to stimulate interest in science, mathematics, engineering and related areas. Students are actively involved in doing experiments using the variables, length, area, volume, mass, density, velocity, acceleration and force, and probability and statistics. Experiments provide problem solving to facilitate understanding of the relationship between two variables, functions and graphs, proportional reasoning, non-linear relationships, measures of central tendency, and probability of the occurrence of events. Students are required to write about the process and results of each experiment. Additionally, students develop four-year individual career plans to facilitate learning to articulate career goals and choose educational paths to accomplish these goals. ***